Presidential Young Investigator Award (Computer and Information Science)

This project focusses on the analysis of visual motion for tasks such as navigation through the environment and manipulation of objects. The work will be based on previous research over the past five years, addressing the problems of motion measurement and recovery of three-dimensional (3-D) structure from relative motion. Future efforts will first examine three fundamental problems: First, the extraction of qualitative properties of 3-D structure and motion to facilitate fast locomotion through the environment; second, the extension of current structure-from- motion methods to allow the interpretation of a greater range of nonrigid motions, and third, the design of parallel networks to recover 3-D structure, which will facilitate the testing of algorithms with natural image motion sequences. The thrust of this research will continue to combine theoretical analyses of these problems, the design and testing of algorithms, and observations regarding the analysis of motion by the human visual system.